Wild Minds: What Animals Really Think

The New York Hall of Science, the Institute for Learning Innovation, Hunter College of the City University of New York, and a consortium of five regional science center/zoo partnerships will collaborate to develop, implement, and evaluate a project with the working title "Wild Minds: What Animals Really Think." It will develop a research-based traveling exhibition for science centers that explores animal cognition and cross-institutional programming strategies for zoos as a case study for the ISE field. The project's primary goal for public audiences is to foster a deeper understanding of similarities between people and animals in terms of cognition, i.e., how we think.

Wild Minds will explore two interrelated hypotheses: (1) a deeper insight into how animals think will create or strengthen the awareness of an evolutionary link between animals and humans; and (2) that this sense of a strong connection can stimulate interest in the welfare of animals in the wild and in our homes. The project will create a 1,500 s.f. traveling exhibition with 15-20 exhibit components exploring aspects of animal cognition for general audiences at five major science centers with zoo partners.

The Institute for Learning Innovation project will conduct applied research that will expand on the results of the summative evaluation of the exhibition by investigating whether changes in awareness, understanding, and knowledge about action are sustained over time and/or lead to attitudinal change, behavioral intention, and observable behavior. In addition, process research with the science center and zoo collaborators will provide an analysis that will identify factors contributing to or inhibiting an integrated local informal science education infrastructure in a community. The project will also conduct exploratory research to identify the challenges and benefits encountered during collaboration between science centers and zoos.